Nuclear Structure 2000 - Support for graduate students and postdoctoral associates

0085334
Glasmacher
This grant provides partial support for the participation of graduate
students and postdoctoral associates to attend the "Nuclear Structure 2000" conference, to be held in East Lansing, Michigan, from August 15-19, 2000. The conference is the major topical conference on Nuclear Structure Physics in North America this year.